Computer Identification of Unknown Spectra (Chemistry)

This project is in the area of data development and utilization and involves a collaborative effort with Chemical Abstracts Service (CAS) on further improvements in accuracy and speed in computer programs for identification of unknown compounds from their mass and infrared spectra. These programs are the retrieval algorithm "Probability Based Matching (PBM)" and the interpretive algorithm "Self-Training Interpretive and Retrieval System (STIRS)". Of particular importance will be comprehensive and efficient utilization of a new data base of around 130,000 different mass spectra. The highest performance PBM and STIRS programs will be developed with CAS, taking advantage of their extensive experience in computer structure manipulation and their complete files of connection-table structure descriptions, for ultimate use on their international on-line service, STN. PBM for on-line GC/MS will be made far more efficient with data base compression, pre-filter techniques, vector formulation, and use of array processor chips. PBM and STIRS accuracy will be improved by exact mass data available from high resolution GC/MS instruments and structural information from infrared spectrometers. STIRS will also be improved through computer identification of maximal structure descriptions of the best matching compounds.